Fundamentals of Supercritical Extraction From a Solid Matrix

The objective of this project is to determine solid/solute (absorbent/adsorbate) interactions in supercritical extraction from solid matrix through determination of adsorption equilibria between dilute supercritical mixtures and well characterized solid matrices, using a dynamic tracer response technique. The partial molar volumes of the adsorbate in the adsorbent are determined through the isothermal density dependence of the solubilities of these solutes in the supercritical phase (date from the literature) combined with the isothermal density dependence of the adsorption equilibrium constants which are measured. Similarly, the heats of adsorption are determined from the isobaric temperature dependence of the adsorption equilibrium constants. Employing the data, a thermodynamic model for adsorbate/adsorbent interactions in presence of a supercritical fluid will be developed. In addition to the adsorption equilibria, the transport and hydrodynamic parameters for supercritical extraction from solid matrices are studied. Together with the adsorption equilibrium constant, analysis of the tracer response data also yields the axial dispersion coefficient, the mass transfer coefficient, and the effective diffusivity of the solute in the pores of the solid matrix at the extraction conditions. A model is proposed for restrictive diffusion in porous particles (effective diffusivity) in presence of supercrtical fluids in terms of the particle morphology, molecular diffusivity, and the ratio of the diffusing molecule diameter to the pore diameter: The results have implications for removal of pollutants from solid adsorbents, for complex mixtures separations and analysis, and for extraction of heat- sensitive chemicals in the food and fragrance industries.